Hybridoma Production by Electro-Acoustic Fusion

The use of ultrasonic standing waves to facilitate the production of mammalian cell-cell hybrids has been demonstrated. However, no evidence has been presented to show that such hybrids are cultivable or functional. The proposal seeks support to create mouse-mouse hybridomas by electroacoustic fusion and by electrofusion, to culture the resulting hybridomas for determination of relative yield by each method, and to determine whether such hybridomas secrete antibodies. Electroacoustic fusion allows the use of physiological solutions in contrast to electrofusion which requires potentially harmful hypotonic media, and conventional polyethylene glycol fusion which employs toxic organic compounds. Electroacoustic fusion, therefore, offers the possibility of producing greater yields of viable, functional hybridomas.